Conference on Future Directions in Distributed Parameter Systems

0080784
Smith

The Conference on Future Directions in Distributed Parameter Systems
will provide a forum that illustrates past accomplishments in distributed
parameter systems and indicates open questions, challenges, and future
research directions. The organizers have contacted and received tentative
acceptance from 14 plenary speakers who will address the state of the art
and future research directions in their respective fields. The plenary
speakers will also be asked to write 10-15 page chapters, summarizing the
perspectives and recommendations made in their addresses, which will be
published within a year after the conference. Secondly, younger scientists
will be invited to present contributed talks that focus on specific
applications modeled by distributed parameter systems. This will provide
the younger scientists with exposure to the perspectives provided by the
plenary speakers and a mechanism for disseminating their own research.
The conference is scheduled for October 5-7, 2000 at North Carolina State
University.

Significant advances in both theoretical and computational resources have
recently facilitated the development and implementation of distributed
parameter models and control designs that incorporate the full spatial and
temporal behavior of complex physical systems. Because distributed
parameter methods are based on the physical mechanisms that produce the
system dynamics, the approach provides advanced capabilities with regard
to system design and control. The Conference on Future Directions in
Distributed Parameter Systems, which is scheduled for October 5-7, 2000
at North Carolina State University, will provide a forum that illustrates
past accomplishments in this field and indicates open questions,
challenges, and future research directions. The organizers have contacted
and received tentative acceptances from 14 internationally recognized
scientists who will address the state of the art and future research
directions in their respective fields. The plenary speakers will also be
asked to write 10-15 page chapters summarizing the perspectives and
recommendations made in their addresses. These will be published within
a year after the conference. Secondly, younger scientists will be invited to
present contributed talks that focus on specific applications modeled by
distributed parameter systems. This will provide the younger scientists
with exposure to the perspectives provided by the plenary speakers and a
mechanism for disseminating their own research.